CISE Postdoctoral Research Associates in Experimental Science: Intelligent Sensor-Based Manipulation with Robotic Hands

This award is for a postdoctoral associate in Experimental Science. The associate, Paul Michelman, will be working on dextrous manipulations with a multi-sensor equipped robot hand.